Presidential Young Investigator Award/Molecular Beam Studiesof the Gas-Liquid Interface

Dr. Gilbert Nathanson is supported by a Presidential Young Investigator Grant from the Experimental Physical Chemistry Program to study atomic and molecular beam scattering from various low vapor pressure liquid substrates. Nathanson will be studying the gas-liquid interface to learn, on an atomic scale, about the roughness of liquid surfaces, about how various beam molecules adsorb, solvate or desorb and about the process of proton exchange on especially prepared surfaces. Nathanson's scattering experiments will answer these questions by following the trajectories of the molecules as they strike the liquid surface. A highly collimated beam of atoms or molecules traveling at a selected velocity impinge on the surface and bounce off or react. The identity of the reaction product and its recoil velocity and direction are monitored by mass spectrometry. By carrying out microscopic,"single collision" experiments, Nathanson hopes to construct an intimate picture of how chemical reactions occur at the interface between gases and liquids.